NSF 2024 NRI/FRR PI Meeting; Baltimore, Maryland; 28-30 April 2024

The purpose of this project is to organize and execute the 2024 National Science Foundation (NSF) National Robotics Initiative (NRI)/Foundational Research in Robotics (FRR) Principal Investigator (PI) Meeting. This meeting will convene investigatord of active awards of the NSF FRR and NRI Programs for the ninth time since the NRI Program began in 2011 and the FRR program began in 2020. The PI meeting is scheduled for 28-30 April 2024 in Baltimore, Maryland. This meeting serves as a conference bringing together a community of robotics researchers whose work is specifically relevant to the NRI and FRR programs. The agenda includes talks from selected projects, poster sessions, workshops, panel discussions, multiple keynote talks, a diversity-focused event, and Federal agency program updates from leaders in the research community. This meeting will also support participation by a cohort of potential future proposers to the FRR program.

The NRI/FRR PI meeting promotes dissemination of research ideas and collaboration amongst robotics researchers. This award is for the meeting organization. The annual PI Meeting is a national event for the NSF FRR and NRI research communities and serves as an annual forum where investigators have opportunities to meet and share their research and best practices, discuss new research opportunities, explore new ideas and partnerships, and interact with Federal agency representatives, industry, and other stakeholders interested in NSF robotics research. NSF PI meetings have played a major role in community-building across a broad range of robotics topics, sectors, and technologies, and serves to bring together researchers who have interest in learning about the program and participating as future proposers, transition partners, or sponsors. Invitees to the meeting will include, among others, all PIs with active NRI/FRR grants.